Quantum Dynamics Under Geometrical and Kinematical Constraints

Experiments with ultracold quantum gases have changed the way we think about quantum dynamics and thermalization. The goal of these studies is to explore the beginning of thermalizing dynamics and to identify the mechanisms driving it in confined systems. One specific question that will be addressed is whether thermalization can occur under dynamics that is fully described by generalized hydrodynamics. The PI will also carry out outreach activities involving pedagogical talks and demo presentations at the local high school and a local elementary school.

The PI will explore the transition between near integrable and thermalizing dynamics in collaboration with experimental groups working with ultracold Bose gases with contact interactions in one dimension. The PI plans to use generalized hydrodynamics and regular hydrodynamics to study dynamics following trap quenches starting from increasingly higher temperature initial states and in the presence of weak integrability breaking periodic potentials. In parallel, the PI plans to study trap quenches in the presence of dipolar interactions. The PI also proposes to explore the effects of kinematical constraints on the equilibrium and dynamical properties of a wide range of models, and in collaboration with an experimental group that works with Rydberg atom arrays featuring synthetic dimensions and quasiperiodic potentials. Specifically, the PI plans to study the eigenstate entanglement entropy and the structure of the matrix elements of observables in those models, as well as equilibrium and excited state phase diagrams. The PI also plans to explore the fate of highly degenerate "zero-energy" subspaces under different perturbations in models that exhibit Hilbert space fragmentation and quantum many-body scars.